Summit Meeting for Surficial Earth Process Cyberinfrastructure

ABSTRACT

This proposal is for a short meeting of representatives of Earth-surface (critical zone)
centers and community efforts, to discuss and coordinate plans and initiatives related to
NSF Earth-science cyberinfrastructure (CI). The meeting will include presentations by
NSF leadership as well as by the various groups about their current and planned research
related to NSF CI. It will include discussion of actual and potential requests for support
for observatories and natural laboratories. The meeting will last for one day and will be
held at NSF headquarters in Arlington. The proposed list of invitees and a tentative
agenda are given below.
Surficial Process CI Meeting: proposed invitees
Chris Paola, National Center for Earth-Surface Dynamics (NCED) and U. Minn.
Bill Dietrich, NCED and U.C. Berkeley
Efi Foufoula-Georgiou, NCED and U. Minn.
Chaitan Baru, San Diego Supercomputer Center
Ilya Zaslavsky, SDSC
David Maidment, CUAHSI Hydrologic Information Systems (HIS) and U. Texas
David Tarboton, CUAHSI HIS and Utah State U.
Rick Hooper, CUAHSI
Sue Brantley, Critical Zone Exploration Network (CZEN) and Penn. State
Doug Miller, CZEN and Penn State U.
Dan Richter, CZEN and Duke U.
Jim Brunt, LTER and U. New Mexico
John Vandecastle, LTER and University of New Mexico
Jim Shuttleworth, National Center for Sustainability of Semi-Arid Hydrology and
Riparian Areas (SAHRA) and University of Arizona
Matt Durcik, SAHRA and University of Arizona
Jim Syvitski, Community Surface Dynamics Modeling System (CSDMS) and University
of Colorado
Larry Winter, National Center for Atmospheric Research (NCAR)
Barbara Minsker, Collaborative Large-scale Engineering Analysis Network for
Environmental Research (CLEANER) and U. Illinois
Matt Larsen, US Geological Survey
Kirsten Lehnert, Lamont-Dohert Earth Observatory (various database endeavors and
sample registry)
Tim Ahern, IRIS Data Management Center
Jim Reichman, NCEAS and UC Santa Barbara
Matt Jones , NCEAS
Mark Schildhauer, NCEAS
Bruce Herbert, Texas A&M U.
Tentative Program
8:30 Art Goldstein: Welcome, organization and introductions
8:40 Margaret Leinen: Opening Remarks
9:00 Jim Reichman, NCEAS CI
9:30 Tim Ahern, IRIS Data Management Center
10:00 Kerstin Lehnert, LDEO, SESAR and SedDB
10:30 Break
10:45 GEON
11:15 CUAHSI HIS
11:45 Lunch
1:00 CLEANER
1:30 NCED
2:00 SAHRA
2:30 WSSC
3:00 NCAR
3:30 USGS
4:00 CSDMS
4:30 Discussion: What is the vision for an integrated Cyberinfrastructure for
Surface Earth Processes
6:30 Dinner at Tuto Bene, everyone pays for their own meal.